Workshop: Developing a Common Wireless Networking Infrastructure

The rapidly expanding information superhighway allows the storage and retrieval of
information in a highly distributed information infrastructure. Yet this infrastructure
requires users to maintain a fixed and universally known position in the network,
which restricts user mobility and portability, so users can not access data from
anywhere and at any time. Now the next step is to make the information superhighway
available to mobile users. But this requires fundamental research that takes mobility,
variable communication conditions, energy limitations and high frequency of disconnection
into account when providing access to this distributed information infrastructure. To
reach this goal, intensive cooperation of researchers from a number of different
communities
including the different wireless, distributed systems and information systems communities
is necessary. Such collaboration currently appears at a risk. In view of this, our
objective is to
define and establish a common infrastructure of the discipline and to develop a consensus
based document that will provide a foundation for implementation and standardization as
well as further research. This infrastructure will foster collaboration between these
different communities. Such collaboration is necessitated by teh current needs of
wireless
technologies, if new horizons of research and development are to be achieved in the next
millennium.